CAREER:Type Systems and Program Analyses for Secure and Reliable Interactive Web Services

Despite the ubiquitous use of interactive web services, the technology
for programming such services has remained low-level, tedious and
insecure. The overwhelmingly common method of extending web
servers with external applications is to use the Common Gateway Interface
protocol, which, while conceptually simple, has several known security
loopholes.

The primary goal of this research is to establish type systems as the
fundamental methodology for reasoning about interactive web services,
and as a basis for designing and implementing tools that guarantee
security and reliability of these services. Some objectives of the
research are to:

(a) Provide tools to create secure programming environments for
interactive web services by building on existing tools and
infrastructure, notably the <bigwig> tools for interactive web
services developed at the University of Aarhus, Denmark.

(b) Implement prototype tools that check the satisfaction of security
policies (e.g., type-safety, memory-safety, secure information flow)
for interactive web services, and that provide feedback about failures.

(c) Foster fundamental progress in the area of modular program
analysis; this is not only essential for interactive web services (and
more generally, mobile software) because of their componential nature
of construction, but also has the potential to impact scalability and
efficiency of more conventional optimizing compilers as well.